Workshop on Statistics and Information Technology

This award provides travel support and local expenses for 25 participants of a two-day public workshop on Statistics and information technology (IT), to be held on September 16-17, 1999, at the NISS building in Research Triangle Park, North Carolina. The purpose of the workshop is to expose statisticians to researchers and to research problems in information technology. Several important problem areas in information technology will be presented from the perspectives of both IT and Statistics, with ample opportunity for questions and discussion. The topic areas to be discussed are: digital government, Internet traffic measurement and analysis, software development, data/model integration, and human-computer interaction. A workshop report will be prepared and made available over the World Wide Web shortly after the conference.